The Workplace and Undergraduate Physics

In this project, we are gathering information about the workplace environments where physics-educated individuals are employed. The study has two parts. First, an "onsite" study based on journals kept by physicists in the workplace. Second, a survey of a particular cohort of physicists in the workplace, namely, those individuals five years after graduation. The results will be published and disseminated.